AMC-SS: Mathematical and Computational in Nonequilibrium Statistical Mechanics.

Luc Rey-Bellet works in several directions in statistical mechanics,
both in equilibrium and non-equilibrium. (a) The construction and the
ergodic properties of stationary states for stochastic partial
differential equations arising from a model of a nonlinear
Klein-Gordon equation coupled to one or several heat reservoirs. (b)
The validity of the fluctuation theorem for entropy production in some
class of non-uniformly hyperbolic systems, such as billiards. This
involves the development of large deviations techniques for such
systems. (c) The validity of the fluctuation theorem for the entropy
production in classical and quantum open systems. (d) The development
of higher-order coarse-graining numerical schemes for Monte-Carlo
methods. Many fundamental problems in non-equilibrium statistical
mechanics remain poorly understood, both at the conceptual and
mathematical level: for example the characterization of non-equilibrium
stationary states of driven open systems. The fluctuation theorem of
Gallavotti and Cohen is a new universal property of these states and
its study in various systems (deterministic, random and quantum) will
be one of the main theme in the work of the investigator. Multiscale
numerical methods and the general question of extracting the relevant
degrees of freedom out of complex systems is a problem of paramount
importance in modern applied mathematics. The investigator proposes
to use probabilistic techniques from statistical mechanics (cluster
expansion and renormalization group) to develop efficient numerical
schemes for the coarse-graining of Monte-Carlo methods. The proposal
of the investigator, besides its theoretical aspects, has a number of
applications to various concrete physical models. These applications
are integrated (via numerical or analytical work) into graduate
research projects. The project involves several collaborations with
researchers in U.S. institutions and abroad. The project also helps to
the dissemination of modern mathematical tools, in particular
probabilistic ones, into applied sciences.

The field of statistical mechanics is the physical and mathematical
theory which attempts to link the microscopic and macroscopic worlds.
The microscopic world, the world of atoms and molecules, is described
by the laws of Newtonian or Quantum mechanics which involve a huge
number of equations. The macroscopic world on the contrary is usually
described by a few parameters or equations, such as pressure,
temperature, electrical and thermal conductivity, etc... This
reduction comes from the fact that a very large number of particles,
seen from through macroscopic lenses, behave in a very regular
fashion. For example, in a well isolated room, the temperature
throughout the room will be nearly constant. Another example is a
piece of metal heated at one end and cooled at the other end: there
will be a flow of energy from the hot part to the cold part but
(almost) never in the opposite direction. This phenomena are similar,
both in spirit and in mathematical terms to the following: if one
throws an unbiased coin very many times then the proportion of head
will be extremely close to one half and (almost) never exhibit
significant deviations. It turns out that to study this typical
behavior it is very useful to study and characterize the rare events
corresponding to untypical behavior, i.e., "large deviations". Having
a detailed understanding of the atypical behavior of a very large
number of particles is in fact the clue to a fundamental understanding
of what is really typical. Theses ideas, which go back to the founding
fathers of physics and probability theory, and their implementations
in various physical situations form the core of the proposal.